Neural Mechanisms of Dominance Behavior

Social relationships among animals influence their behavior, and do so by affecting the neural circuits and responses that control behavior. A primary link between social status and behavior occurs through the release of neuromodulators that have both widespread and targeted effects within the nervous system. One neuromodulator, serotonin, has been implicated in the expression of social ordering behaviors in a wide range of vertebrates and invertebrates, including primates, rodents, fish and crustaceans. The neural mechanisms that link serotonin's effects to the expression of dominance status have been studied most thoroughly in crustaceans, particularly lobsters and crayfish. During the current grant period the social dominance status of a crayfish was found to predict the effect of the neuromodulator serotonin on the neural circuit for the taiflip behavior. Serotonin enhances the response of the Lateral Giant (LG) tailflip command neuron to its normal mechanosensory input in isolated crayfish and in socially dominant crayfish, and inhibits the cell in subordinate animals. The differences result from corresponding differences in the population of serotonin receptors. The present proposal continues this research by determining the sources of serotonin that modulate LG in freely behaving animals, and by asking where and how serotonin has its different effects on LG in the animals of different social status. Blood levels of serotonin in freely behaving crayfish will be measured during fights, and the responses of LG to serotonin, serotonin agonists and antagonists will be measured with standard electrophysiological techniques.